Minority Postdoctoral Research Fellowships and Supporting Activities: Travel Award.

This action funds a Minority Graduate Student Travel Award as offered in program announcement NSF 94-133 . The travel award permits travel to the University of Uppsala in Sweden where the grantee will consult with his proposed sponsoring scientist on his research and training plan for an application to the NSF Minority Postdoctoral Research Fellowship program in fiscal year 1996.